UJNR Workshop on Smart and High Performance Materials and Systems

This project conducts a US-Japan Cooperative Workshop on Smart and High Performance Materials and Systems in Tsukuba, Japan on May 14 and l5, 1993. The technical program of the workshop focuses on the applications in civil engineering structures under seismic loads and generic motion conditions. This workshop involves U.S. and Japanese researchers from academic institutions, government laboratories and industry. The purpose of the workshop is to discuss the state-of-the-art of the subject matter and to develop future cooperative research agenda for U.S. and Japanese researchers. Recent advances in sensor, actuator and computer technologies as well as the emergence of modern high performance materials pose a great challenge to the civil engineering research and development community. National consensus now exists for urgent necessity to develop safer, more economical and environmentally friendly infrastructure systems by rehabilitating, upgrading and retrofitting the nation's deteriorating, obsolete and aging infrastructure systems in order, among other things, to significantly enhance the international competitiveness of the nation. In this respect use of smart and high performance materials and systems is considered as a most promising area for the concerted effort on the part of the U.S. researchers. All the U.S. researchers participating in this workshop are university-based and present the cutting edge research work at their respective institutions. The Japanese participants are expected to represent primarily government laboratories, and construction and other industries, thus presenting more application oriented research results to the benefit of the U.S. delegation. This workshop is implemented as a part of the U.S.-Japan in National Resources (UJNR) program.